Advanced Automation Research Laboratory Equipment

Support is provided for acquisition of an automation research instrumentation system which consists of a VAX 11/750 minicomputer system having a 2-megabyte directly addressable memory and 121-megabyte disk storage and a Ramteck image display system. This equipment will enhance research in image processing/pattern recognition, robotics, automatic inspection methodologies, and biomedical applications. Eight specific projects involved are: automated inspection of VLSI resist patterns on wafers as imaged by scanning electron microscopy, development of a knowledge-based system for image processing methodologies, orientation identification and shape recognition of three-dimensional objects, robotic touch sensors and position sensors, non-stationary statistical image modeling, pattern recognition study of sarcomere dynamics in striated muscle, digital radiographic processing research, and analysis of diastolic filling parameters by multiple gated acquisition studies.